2002 Gordon Research Conference on Nuclear Chemistry

The main objective of the Gordon Research Conference on Nuclear
Chemistry is to provide the international community of nuclear
scientists with a unique forum in which the newest developments at
the forefront of this science can be presented and subjected to
detailed and extended discussions and criticism. The purpose of the
conference is to encourage communication and the discussions to be
conducted in an atmosphere conducive to open interactions between
the scientists, provoking new and even speculative ideas for future
research. To accomplish these goals requires the participation in
all of the conference activities of a significant number of leaders
in the field. The participation of younger scientists is essential
to address the future manpower needs of this rapidly changing field.
Therefore, bright and promising postdoctoral researchers and
graduate students have been specially selected for participation in
this conference and encouraged to present their ideas. Their
participation in this conference provides them with unique and
extensive access to the leaders in their field, exposes them to new
research opportunities and techniques and helps prepare them for the
leadership roles they will assume in the future. This award will
facilitate participation from these junior scientists.